Water and Metabolic Relations of Terrestrial Arthropods

The proposed research represents a continuation of efforts to learn how insects and arachnids regulate their water balance and metabolic activities in ways that enable them to successfully adapt to harsh terrestrial environments. Previous research has shown that the key structural element in preventing excess water loss is their cuticle (exoskeleton), especially the waterproofing barrier provided by lipids (waxes) deposited on the surface and also embedded in the outermost layer of the cuticle. The correlations established between barrier effectiveness and the quantity (surface density) or molecular composition of these lipids are based largely on indirect evidence or on relationships established for biological membranes which feature both a different class (phospholipids) and a different arrangement of these lipids. The proposed research is significant from the standpoint of both basic and applied research. The measurement technology designed for these experiments can be used by plant and animal scientists in a variety of disciplines to monitor water flux across biological or artificial membranes or to measure the moisture content of gases released during respiration or photosynthesis. In many respects, the technological developments are as important as the data they produce. The proposed studies will also provide information on how lipids are organized and deposited on the cuticle surface, how interactions between various lipids and nonlipid barrier constituents contribute to reduced permeability, and how and to what extent changes in the amount and composition of surface lipids occur in response to increased dehydration and/or increasing desiccation potential. This information can be used by firms or agencies whose function is to develop better means of controlling insect pests through the manufacture of more effective sprays or abrasives, or by suggesting agricultural practices that will create microenvironmental conditions which are inhospitable for insects and still permit plant growth.